Saving Madagascar through Applied Science

The Wildlife Conservation Society (WCS), the umbrella organization including the Bronx Zoo, will design, develop, fabricate, evaluate and install a long-term exhibition with ancillary public programming about the biology and conservation science of the island of Madagascar. Based in part on long-term scientific research conducted in Madagascar by the WCS, the exhibit will use immersive, interactive exhibit approaches including live plants and animals, as well as an on-line curriculum (Wild Explorations in Science), distance learning expeditions, and an interactive website to engage visitors of all ages in experiencing conservation science and specific examples of science saving wildlife. Visitors will explore unique and beautifully re-created habitats, encounter fascinating animals and learn about concepts such as endemism, island biogeography and biodiversity. The exhibit will serve about 2,000,000 visitors to the Bronx Zoo annually and millions nationwide through on-line curricula and distance learning programs.